Algorithms and Numerical Analysis for Partial Differential Equations

Schatz Abstract: We propose to investigate various aspects of the finite element method for elliptic and parabolic problems including, (1) A posteriori error estimation. Conditions were recently given by the proposer, W. Hoffman and G. Wittum under which a class of averaging operators are asymptotically exact error estimators for the max norm of the gradient on each element in a model smooth Neumann problem. The class includes the Z-Z estimator. Preliminary estimates indicate that these methods do not work for problems on polygonal domains where pollution effects dominate. We propose cures which we shall analyze.(2) We propose to investigate a unifying theory for superconvergence which includes several previously developed by the proposer and co-authors. We shall focus on a theory which is applicable to smooth and nonsmooth problems.(3) We will investigate an a priori "universal" mesh grading algorithm which can be used to provide optimal relative error for problems with power type singularities.These meshes should be particularly useful for elliptic problems on three dimensional polyhedral domains where the optimal meshes are highly anisotropic. (4) Problems with highly anisotropic diffusion will be investigated which are singularly perturbed elliptic problems which degenerate to parabolic problems. These problems often exhibit boundary layer behavior and the standard finite element method does not perform well when this occurs. These problems are not convection dominated. The investigation and solution of the many complex problems which arise in science and the manufacturing industry have increasingly benefited from mathematical and numerical studies of their underlying mathematical models. The successs of this approach is due to advances both in the developement and unders tanding of new numerical algorithms and in advances in high performance computing. In this proposal we study various aspects of the finite element method for solving a large variety of problems which arise in practice and which are modeled by partial differential equations. As just a very few examples we mention problems in elasticity to determine the strength of complex structures a nd problems in fluid dynamics. The latter includes such diverse problems as the determination of ground water flows for pollution studies to the study of the ab sorbtion of medicinal ointment through the skin. This project is oriented toward suggesting and analyzing new methods for the efficient and accurate solution of such problems.We shall seek better approximations by enlarging the theory of sup erconvergence and investigate a means of universally grading meshes for problems on domains with corners which arise very often in industry. Among other things we shall study means for obtaining an estimate for the error between the compute d solution and the unknown true solution to determine a posteriori the quality of the approximation.